Student Travel Fellowships to Attend the 2nd Workshop on Resource Discovery

The second workshop on Resource Discovery (RED) is co-located with
the 35th International Conference on Very Large Data Bases (VLDB)
on August 28, 2009, in Lyon, France. This project provides travel fellowships
to students enrolled in US universities in order to attend the workshop.

The workshop is concerned with the design and development of models and
prototypes that support the representation of resources, the discovery of
resources on the Web, the identification, localisation, and composition of
resources. A resource corresponds to an information source such as a data
repository or database management system (e.g., a query form or a textual
search engine), a link between resources (an index or hyperlink), or a service
such as an application or tool. Resources are characterized by core information
including a name, a description of its input and its output (parameters or format),
its address, and various additional properties expressed as metadata. Resource
discovery is the process of identifying and locating existing resources that have a
particular property. Machine-based resource discovery relies on crawling, clustering,
and classifying resources discovered on the Web automatically. Resources are
organized with respect to metadata that characterize their content (for data sources),
their semantics (in terms of ontological classes and relationships), their characteristics
(syntactical properties), their performance (with metrics and benchmarks), their quality
(curation, reliability, trust), etc. Resource discovery systems allow the expression of
queries to identify and locate resources that implement specific tasks. For further
information see the project web page at: http://bioinformatics.eas.asu.edu/RED/red2009.html